CRCD: Recent Developments into the Mixed-Signal/Telecommunications Curriculum

This award provides funding to the University of Arkansas for the support of a Combined Research-Curriculum Development project entitled, "Incorporating Recent Developments into the Mixed-Signal/Telecommunications Curriculum," under the direction of Dr. H. Alan Mantooth. This project has the following four major objectives: 1) to substantially transform and evolve the mixed-signal and telecommunications curricula at the University of Arkansas; 2) to better prepare graduates for careers in mixed-signal and telecommunications related fields; 3) to have a national impact on the education of mixed-signal and telecommunications engineers, and 4) to establish an innovative model for new course creation that facilitates the incorporation of ongoing research and encourages widespread dissemination.